Interior-Point Methods for Conic Optimization

Todd
0209457
In this project, the investigator and his students study
improved interior-point algorithms for convex, especially
second-order and semidefinite, programming problems. In
particular, they investigate finding more accurate solutions to
large-scale problems of this kind, interpreting the output of
infeasible-interior-point methods as searching for infeasibility
certificates when applied to infeasible problems, using ideas of
Riemannian geomentry to develop new interior-point methods for
possibly infeasible problems, and studying new barrier functions
to be used in highly asymmetric problems, where usual primal-only
or primal-dual methods would be inefficient. All these ideas are
tested out by implementing them in the software package SDPT3,
developed by the investigator and two of his collaborators, which
is a competitive primal-dual code available over the internet (e.g., at
http://www.math.cmu.edu/~reha/sdpt3.html) and within the NEOS
system (http://www-neos.mcs.anl.gov/neos/server-solvers.html)
for distributed computing.
Interior-point algorithms are a new and exciting
computational method for solving large-scale resource allocation
and other optimization problems. For example, they have been
used to develop better designs for truss structures, such as
bridges, that are better able to resist a wide range of external
loads. Another application is the design of antenna arrays to
highlight the receptivity in certain directions while muting that
in all other directions. In finance, they are used to develop
"optimal portfolios" to balance an acceptable rate of return with
low volatility (unfortunately, these methods are only as good as
the data they employ, and past history often does not give a good
indication of future performance). In this and other contexts,
the idea of robust optimization, to find solutions to problems
that satisfy all constraints even when the data are perturbed a
little, and that give good performance measures even when the
data are slightly changed, is very attractive, and this class of
methods is successful in treating some problems of this kind
also. A last application mentioned here is currently being
studied by the investigator and a statistics colleague: trying to
find a good way to classify new data into one of two classes
(e.g., with or without a cancerous tumour) on the basis of some
training data (with known classification). This problem is of
interest in data mining and biomedical fields. In all these
problems, there is a desire to solve larger and larger instances
(involving tens of thousands of variables and constraints) more
and more accurately. The investigator and his collaborators
study theoretically and practically ways to improve existing
algorithms to extend their capabilities in these directions.